Natural Language Processing and Connectionism

9201987 Kwasny This is the third year funding of a three year continuing award to investigate the following four issues: (1) the processing of natural language with hybrid symbolic/subsymbolic architectures, (2) the development and study of representational schemes that support both traditional structures as well as ambiguity within those structures, (3) a challenge to the determinism hypothesis of M. Marcus in creating recurrent networks that require information to be extracted from the sentence while processing left-to-right, and (4) the generalization capbilities of various deterministic, connectionist processing systems. These issues are considered experimentally in a family of demonstration systems under development. The organization of these demonstration systems is extended beyond syntactical considerations.